NGS: A Computer System Design Hierarchy for Simulation

EIA-0103706
Donald E. Thomas
Carnegie Mellon University

Next Generation Software: A Computer System Design Hierarchy for Simulation

Computer system design requires reasoning about the interaction of software with the underlying models of hardware resources without limiting such models to single system views. Computer system elements and their interactions are not purely software-functional or purely hardware-structural-they have properties of both. A challenge in computer system design is to define the elements and the means of resolving their interactions, so that software interacting with underlying hardware resources can be modeled flexibly; alternate designs, ones with different numbers and types of processors, network interconnections, and/or software schedulers, may be easily considered.